Conformal Geometry and Asymptotically Hyperbolic Metrics

Abstract

Award: DMS-0505701
Principal Investigator: C. Robin Graham

The investigator will carry out several research projects
studying various aspects of conformal geometry and asymptotically
hyperbolic metrics. These include analyzing a
Dirichlet-to-Neumann map for Poincare-Einstein metrics, studying
the boundary rigidity problem for asymptotically hyperbolic
metrics, and developing the theory of the ambient metric in even
dimensions beyond the obstruction. The main objectives are to
further understanding of these geometries and their relationship.
The methods are analytic, geometric, and algebraic, with an
intimate connection between these different aspects of the study.

This project will study the relationship between different
geometric structures: conformal geometry on the one hand and
asymptotically hyperbolic geometry on the other. Conformal
geometry is the study of properties of space which depend only on
angles but not on distances. Hyperbolic geometry involves spaces
of negative curvature, in which the analogues of straight lines
separate more than in usual flat space. Several projects will
study the relationship between these geometries. Apart from the
intrinsic geometric interest, one motivation is the AdS/CFT
correspondence in Physics, a proposed holographic correspondence
for certain physical phenomena. The proposed activity will
further enable the development of human resources through
educationally oriented activities of the investigator, including
advising, mentoring and teaching graduate students, and
curricular development. International cooperation and
partnership will be promoted. Ties between the mathematics and
physics communities will be enhanced. The results will be
effectively disseminated through attendance and speaking at
meetings and conferences and through posting and publication of
articles.